Hydrothermal Upwelling Through Outcrops on the Eastern Flankof the Juan de Fuca Ridge Near 48 Degrees North

The nature of hydrothermal venting through submarine ridges on the Juan de Fuca Ridge will be characterized and quantified using profiles of sediment pore-water chemistry from the very thin sediment that partially covers the outcrops. The outcrops will be photographed to determine whether visible vents and biological communities are present. Samples of rock,m indurated sediment and hydrothermal precipitates will be taken. Any hydrothermal discharge to the overlying water column presumably will be delineated.